CEDAR: CCD Observations of Mesospheric Airglow Emissions: A Follow-On to the ALOHA-90 and AIDA-89 Campaigns

This project will deploy the upgraded Aerospace CCD camera at the University of Illinois to make measurements of the temperature and intensity of the OH Meinel (6,2) band and O2 Atmospheric (0,1) emissions. Concurrently, the University of Western Ontario Fourier Tranform spectrometer will make the same measurements. This data will then be used to cross-calibrate the various measurement techniques. Further, the Aerospace CCD camera will explore the effects of gravity waves on the upper mesosphere over Maui, Hawaii, and make more measurements during the ALOHA-93 campaign in the fall of 1993.